Mathematical Sciences: Estimation in Nonlinear Heteroscedastic Regression Models

This research involves the study of fitting statistical nonlinear regression models to data for which the response variance has been modeled as a function of the mean response and other variables and possible unknown parameters which must be estimated from the data. Estimation will be studied for repeated measures data in which the response variance varies within individuals. A heteroscedastic random coefficient model containing a functional model for intra-individual variance with unknown parameters to be estimated is considered. Systematic study of the implications of the theory of variance function estimation for data consisting of independent observations will be conducted. Estimation for regression analysis with censored data will be studied when a variance function model is postulated. These models are applied to a detection limit problem common in pharmaceutical applications.